NSF FF: Planning: AI As A Subject And A Personal Teaching Tool

This FINDERS Foundry award helps K–12 students gain safe, responsible, and meaningful AI literacy. Many schools lack tools that make AI instruction easy to use, personalized, and relevant to students’ interests. This project will design a platform where AI is both the topic students learn and the tool that adapts instruction for each learner. Using simple, age‑appropriate interfaces, the system will generate learning materials matched to students’ interests, future goals, and preferred ways of learning. Teachers will keep full oversight, and families will have clear insight into how AI is being used. Students, teachers, and caregivers from rural, suburban, and urban communities will guide the design so it reflects real needs and builds trust. By expanding access to high‑quality AI learning, the project supports national goals to broaden participation in emerging technologies and prepare students for future careers.

This FINDERS Foundry award collaboratively builds a detailed design plan for an AI‑powered instructional platform which embeds a context‑aware AI tutor within an AI‑literacy curriculum. The team will work collaboratively towards model‑selection criteria, prompt‑design rules, retrieval‑augmented generation architectures, and feedback‑loop policies suitable for K–12 environments. Co‑design workshops with students, educators, and caregivers guides the development and validation of interactive wireframes that reflect authentic instructional needs. Constructing baseline evaluation instruments, such as measures aligned with the Generative AI Literacy Assessment Test, will assist in gauging learning outcomes and system usability. Taken together, the project deliverables include a prioritized requirements specification that captures technical, instructional, and user‑experience needs; validated wireframes; and a plan for a future potential co-development phase which may be embedded within an Introduction to Computing and AI course. This research provides a foundation for scalable, responsible AI‑enabled instruction deployable through existing courseware infrastructure.